Late Neogene Paleoceanography

The PI proposes to study the paleoclimate and paleoceanography during two time periods when there is evidence of dramatic climatic and oceanic variability. The study will utilize DSDP and ODP cores which have recovered the 3.1 and 5.0 million year time-slices. Fluctuations in oxygen and carbon isotopes will be determined in these cores so that the timing of these events in different oceans may be examined and the causes delineated. Both shallow and deep cores will be used in this study so that the surface to deep isotopic gradients may be examined and related to fluctuations in deep circulation which produce cooler deep oceans relative to the near surface ocean or ice volume changes which affect both the surface and deep ocean. This study should add valuable new information to our knowledge of the causes of climatic variability in the latest Miocene and Pliocene ocean.